ICE Fundamentals Program for Minority Teachers and Teachers of Minority Students

This program, sponsored by the Catholic University of America, will provide a two-year summer workshop for 50 less well-prepared teachers of chemistry from the Washington D.C. region. The target group is minority teachers or teachers of minority students. Also included in the project is a follow up program during the academic year between the two summer sessions which will emphasize implementation of the techniques learned in the summer. The teachers will study chemistry content, learning theory and instructional strategies for learning chemistry concepts. Lecture, pedagogy and laboratory activities will be integrated throughout. In the laboratory component of the project teachers will learn about microchemistry techniques, computer-lab interfacing, demonstration activities and instrumentation. The University is providing a match to the NSF funds equavalent to 10% of the grant award.